Toward a dynamical theory of Thurston's norm

Spaces are often better understood by cutting them into pieces of lower dimension. For example, on a topographical map of a mountainous area, the 1-dimensional lines of constant altitude provide valuable information about a landscape. The breaks in the smooth pattern of contour lines indicate significant locations---high points, low points, and mountain passes. Moreover, the lines tell us how water will flow over the landscape. The pattern formed by these lines is known in mathematics as a "foliation," and the paths taken by water determine a "flow." This project focuses on flows associated to foliations, but in one dimension higher than the map example: the foliations are comprised of 2-dimensional pieces inside a 3-dimensional space, similar to the universe in which we live. The PI will address longstanding open questions relating the fields of geometry, topology, and dynamics in 3-dimensions. In addition to original research, this project will involve the training of graduate students and support a mathematics periodical run by undergraduates and faculty at the PI's institution.

The project's overarching goal is to better understand the relationship between taut foliations and pseudo-Anosov flows in 3-manifolds, and to leverage this relationship to better understand the structure of the Thurston norm. A first concrete goal is to prove, with C.C. Tsang, a strengthening of a famous unpublished theorem of Gabai and Mosher: every taut finite depth foliation of a compact, irreducible, atoroidal 3-manifold is almost transverse to a pseudo-Anosov flow. The strengthening consists of characterizing when the construction yields a pseudo-Anosov flow “without perfect fits,” a property relevant to the study of the Thurston norm. A second goal builds on the first, and is to relate the collection of pseudo-Anosov flows almost transverse to a given taut finite depth foliation to the collection of universal circles for that foliation. The PI aims to link these two families using the Gabai-Mosher construction, giving an approach to Mosher's Transverse Finiteness Conjecture.